Lithium Isotope Investigations of Magmatic and Hydrothermal Systems

9706469 Walker Natural isotopic variations in Li are known to be large. However, the reasons for these variations and the extent of variations in particular natural systems have not been well established. In particular, the isotopic variations for the two isotopes of Li are quite large during magmatic processes. Consequently, Li isotopes could prove useful as a tracer of magmatic evolution and also as a geothermometer. Improved mass spectrometric and chemical separation techniques now permit Li isotope measurements at the (0.1% level. The PIs explore the behavior of Li isotopes in experimental and natural magmatic/aqueous systems. They will explore: (1) experimental partitioning of Li and Li-isotopes in melt-volatile phase-mineral systems; (2) variations in Li isotopes in granite-related mineral deposits; and (3) the variation of Li isotope compositions in a suite of related granites from the Black Hills of South Dakota.